Combusting Coal Particle Temperatures by Fourier Transform Infrared Spectroscopy - Phase II

This research covers the testing and calibrating of Fourier Transform Infrared measurement techniques developed by using combustion devices of increasing size and flame complexity. The program is divided into three tasks: calibration--measurements are made of species emittances (ash, char, soot, and coal), and measurements of temperature, size, and concentration are performed under monitored conditions using well-characterized feedstocks; application of laboratory-sized burners--measurements are made to map the flame, including analysis by tomography to obtain spatially-resolved data from the line-of-sight measurements; automated procedures are implemented for data analysis; and application to pilot scale furnace--this task is performed in a pilot-scale test furnace with an optical access.